Research in Network Information Theory

This research is in the area of network information theory with emphasis on the development and analysis of new coding techniques for efficient matching of correlated information sources to multi-terminal channels and the conditions under which these coding schemes are optimal. The new coding schemes are based on joint source and channel coding rather than separate coding for source and channel. The performance of new coding techniques is compared to the existing schemes and also to separate coding for the information source and the communication channel. Special emphasis is placed on the investigation of the performance of the proposed coding schemes under various types of channel impairments, such as symbol and block asynchronism. Different types of source- channel configurations, including cases with feedback, are studied and the possibility of optimal separate and channel coding in each case is investigated.